Inhibited Grain Growth in Discrete and Interconnected Multiphase Structures

9302292 Patterson The objective of this research is to understand grain growth in multiphase materials that exhibit wide variations in amount and structure of a grain-growth inhibiting phase. The studies are performed on experimental materials created with desired initial microstructures. The effects of controlled variations in basic but critical parameters such as volume fraction, shape, location, mobility, stability, and contiguity of the growth inhibiting phase are examined. Elevated temperature grain growth anneals are employed with stereological measurements to analyze the evolving grain and inhibiting phase structures. The data are analyzed using a grain growth model derived from recent research to test and further refine the model. %%% The knowledge gained from these studies will be of scientific and technological value, broadly applicable to a wide range of conventional and advanced materials. ***